Characterization of the Cyanide-resistant Oxidase in Plant Mitochondria

The research outlined in this proposal is designed to continue the purification and characterization of the cyanide-resistant, "alternative" oxidase associated with the electron transfer chain of mitochondria in most plants, many fungi and some protozoa. The role of this energetically wasteful oxidase in plant energy metabolism is not known and only recently has progress been made identifying protein species associated with the oxidase. The PI has successfully carried out a partial purification of the alternative oxidase from the highly cyanide-resistant spadices of flowering skunk cabbage. This preparation will be further purified and the cofactors associated with the oxygen reduction reaction catalyzed by the enzyme will be identified. More specifically, the nature and amount of an auto-oxidizable quinone found to be associated with the enzyme will be determined as will the nature of any metals bound to the purified enzyme. Studies will also be carried out to determine the relative contributions of steric factors, redox potentials and quinone lipophilicity to the ability of a given quinone species to serve as an electron donor to the alternative oxidase. These studies will lead to a better under understanding of this unusual oxidase and the nature of its interaction with the mitochondrial electron transfer chain. Unlike animals, such as humans, plants have two respiratory pathways in their mitochondria. One is similar to that found in animals and is sensitive to (poisoned by) cyanide. The second pathway, which shares the initial steps of the first pathway, does not occur in animals and is cyanide resistant. This second, alternative pathway is less efficient than the first in energy production. Interest in the two pathways is heightened by the fact that plants can regulate the flow of electrons between the two pathways. Hence there are environmental and biological conditions that favor the use of one pathway or the other. The fact that the alternative pathway is less efficient energetically raises the question of why the second pathway exists and is preferred under certain conditions. The experiments outlined in this proposal to study the alternative oxidase will help to characterize the alternative oxidase and how it functions.